Doctoral Dissertation Reseach in Sociology: Ethic among Second-Generation Korean Immigrants in New York City

Abstract

SES 0000267
PI: Herbert J Gans, Sara S Lee

This project will interview a sample of 100 second generation Korean-Americans to study determinants and effects of their ethnic identity. While most studies of immigrants focus on the first generation, this one will extend knowledge of ways in which culture is transmitted across generations, and how various cultural influences are assimilated in the respondents' self-concept. Other sociological variables whose impact will be studied are social class, mobility (many of the target group have been upwardly mobile), and gender. The results will enhance understanding of immigrant experiences and effects of migration across widely different cultures and geographical locations.